Structure/Function Relationships in Tropomyosin

The contractile protein tropomyosin is an important component of the thin filament-linked contractile regulatory system. The long-term goal of this research program is to obtain a more detailed understanding of the relationship between tropomyosin's primary structure and its role in muscle cells. The current proposal focuses on the functional importance of specific amino acid residues in the C-terminal region of tropomyosin, using Drosophila as a model system. This work will enhance our understanding of muscle structure and function.